Redevelopment of the Manufacturing Systems Course/Laboratory Content and Development of Learning Material based on Student Motivational Value Styles (MVS)

Engineering - Other (59)

To respond to the challenge of reforming engineering education to produce future graduates who are innovative and creative, course instructional materials and learning activities are being developed based on students' motivational value styles. This project focuses on using the Strength Deployment Inventory (SDI) Assessment Tool with students to measure multiple factors and then use this data to drive the development of classroom teaching techniques and practices. This strategy is initially being explored within a Manufacturing Systems Course and Laboratory for juniors and seniors within Industrial and Mechanical Engineering. Using the SDI enhancement within the course and laboratory provides an excellent opportunity for assessing performance changes resulting from introducing individualized strategies of motivating students to learn the principles of manufacturing systems.